Workshop Proposal: Control of Quantum Systems Conference, Harvard University; August 7-12, 2006

The proposal requests funds for a five day workshop on quantum control to be held at Harvard University
in August of 2006. The goal of the workshop is to foster an understanding among control theorists of
application-driven needs for methods to design control schemes and an appreciation of the practical
constraints on their implementation. We also hope to build an appreciation among experimentalists
and theoretical for the range and utility of analysis/design methods from control theory. Finally, we
hope to begin the development conceptual and mathematical languages for quantum control. research
presentations will be integrated with tutorial lectures. We are requesting funds from several sources with
the expectation that we will be able to cover the travel and living expenses of about 55 attendees from
outside Cambridge and about 20 local.

Intellectual Merit The workshop aims to bring researchers from diverse field of physics, chemistry,
control theory, dynamical systems, stochastics, signal processing and information science to identify
mathematical models and control problems whose study and solution will have significant bearing on
technologies and experiments involving control and manipulation of quantum systems. Experience has
shown that systematic use of methods of control theory that lead to significant improvement in the state
of the art methods in fields ranging from magnetic resonance to quantum information processing. The
workshop aims to build on these successes to create a unified language and system theory of quantum
mechanical systems with potential impact on areas of atomic, molecular and optical physics, coherent
spectroscopies in chemistry, magnetic resonance, quantum communication, information and computation.

Broader Impact Important component of this meeting are tutorial sessions that aim to educate students
and researchers in areas of physics, chemistry and magnetic resonance, the analysis and design methods
of control theory. There will also be tutorial session on basic models that arise in applications involving
control and manipulation of quantum systems to researchers and students in engineering. There is a
formidable gap between the types of models and analysis commonly utilized by application-oriented
practitioners and those studied by control theorists. The workshop aims to bridge this gap.